Travel Support for Dynamical Barriers, Stirring and Mixing in Geophysical Flows-Mathematical Model and Applications (GEOMIX) Workshop; Corsica, France; August 19-September 1, 2001

The award provides travel support for US participants in the GEOMIX workshop, which will be held at the Institut d'Etudes Scientifiques de Cargese in Corsica, France from August 19 to September 1, 2001. The theme of the workshop is Geophysical Mixing and Transport. Research in this area---at the nexus of geophysics and applied mathematics---is of considerable practical importance, since applications abound in areas such as ozone depletion (ozone hole) in the high latitudes, long-range transport and transformation of chemical pollutants, North Atlantic thermohaline circulation, and biogeochemical processes controlling ocean absorption of CO2. Core funding for the workshop has been obtained from the European community and from Centre National du Recherche Scientifique (CNRS) in France. The PI, Ray Pierrehumbert, is an acknowledged leader in this research area, and one of the three lead organizers of the workshop. The NSF award should support travel of approximately 20 U.S. participants, primarily, advanced graduate students, postdoctoral fellows, and early-career junior faculty.

The Large-scale Dynamic Meteorology (GEO/ATM), Physical Oceanography (GEO/OCE), and Applied Math (MPS/DMS) programs are all equally contributing to the award funding.